CIF:Small: Primitives for Cryptography and Communications

CIF: Small: Primitives for Cryptography and Communications

Principal Investigator: Andrew Klapper, University of Kentucky

Pseudorandom sequences and highly nonlinear functions are essential for
digital communications and information technology. They are used in
stream cipher cryptosystems, spread spectrum systems in cellular
telephones, GPS systems, satellite communications, error-correcting codes
for digital communication, and large simulations for such applications as
weather prediction, reactor design, oil well exploration, radiation cancer
therapy, traffic flow, and pricing of financial instruments. In each case
sequences or nonlinear functions with particular properties are needed.
Yet few general constructions of high quality pseudorandom sequences
and highly nonlinear functions are known. This research involves the
development and analysis of a large supply of these tools for a variety of
applications in cryptography, coding theory, and simulations.

In 1994 Klapper and Goresky proposed "feedback-with-carry shift registers"
(FCSRs), pseudorandom generators which are easily implemented and which
rapidly generate sequences with many desirable properties. These generalize
to algebraic feedback shift registers (AFSRs). Many basic properties of FCSRs
and AFSRs have been determined and they have been used in stream ciphers
and quasi-Monte Carlo. This project addresses issues concerning FCSR and
AFSR sequences including (1) The development of new classes of highly
nonlinear functions for use in block ciphers and stream ciphers, (2) the
development of new tools for the analysis of nonlinear functions based on the
"with-carry" paradigm, (3) the solution of the "register synthesis problem"
for AFSRs, (4) the identification of new classes of AFSR sequences with good
randomness properties, and (5) the extension of various ideas and methods in cryptography to vector valued functions and sequence generators.